Development of a New Parametric SCF MO Treatment Capable of Extension to Transition Metals

Professor Michael J. S. Dewar is supported by a grant from the Theoretical and Computational Chemistry Program to develop a new semi-empirical self consistent field molecular orbital treatment which is capable of being extended to transition metals. The proposed "fourth generation" semi-empirical parameterization has already been successfully applied to the elements C, H, O, and N. It will now be extended to the halogens, and eventually to the transition elements which involve d atomic orbitals. The improved semi-empirical parameterization will be applied to a variety of important chemical problems including: mechanisms of pericyclic reactions; studies of substituent effects; properties of nitro compounds; reactions of singlet oxygen; phosphorous and sulfur chemistry; and chemistry of non-transition metals. %%% With the advent of supercomputers coupled with continued developments in theory, the field of chemistry is rapidly approaching a time when computed chemical properties will be reliable enough to substitute for experimental measurements. Nevertheless, the computational costs involved with reliable ab initio molecular orbital calculations remains high for all but the very smallest molecules. Semi- empirical methodologies of the type developed by Professor Dewar continue to offer a practical alternative to chemists who must deal with large molecules such as those encountered in the pharmaceutical industry.